RUI: Effects of Regulation on the Price and Quality of ChildCare

The purpose of this research is to develop models for child care for estimating the effect of regulation on the quality of care children receive and the price that families, government, and employers pay for care. Hedonic models are developed which provide a means of incorporating the pervasive heterogeneity of child care services. Knowledge of the effect of regulation on the price and quality of care is valuable for informing the public and private debate regarding child care policy and may allow adoption of child care policies that more efficiently achieve quality care for children. To estimate the models, national data collected by the 1990 National Child Care Survey and the Profile of Child Care Settings are used.